Graduate Engineering Education for the Development of Electrical and Computer Engineering Faculty

The Marquette University Department of Electrical and Computer Engineering plans to establish a Graduate Engineering Education (GEE) Program of study, research, and academic support for students from underrepresented backgrounds. All aspects of the program will be focused directly on the timely completion of a doctoral degree in signal processing, and the preparation and motivation for a career in university teaching and research in electrical and computer engineering. The five year GEE program will provide financial, academic, professional, and personal support for three GEE Fellows in each program year. It is anticipated that students will complete their degrees in three to five years, allowing room for new participants in year four.